Presidential Faculty Fellows: Learning for Autonomous Agents

This research concerns the design and implementation of autonomous agents, that is, of computer programs that have sustained interactions with a dynamic, incompletely predictable environment, examples being mobile robots, factory control programs, and programs for database consistency management. To facilitate the design and construction of very sophisticated autonomous agents, it is important to develop appropriate program specification techniques, planning algorithms, and learning methods, and these tasks have formed the focus of the researcher's previous work. Areas to be emphasized in the continuing research are the integration of learning methods with pre-programmed strategies and the integration of low-level, reactive methods with higher-level planning approaches. In addition, some technical problems of reinforcement learning will be studied. One of these will be the effect of preprogrammed knowledge and structure on the learning process. Another will be efficient learning where relevant aspects of the environment are inaccessible to the agent's sensory systems. Planning in stochastic domains will also be explored.